Travel for US Participants in 22nd International Congress of Applied Psychology, Kyoto, Japan (July 22-27,1990)

This project will partially support the travel of a small group of U.S. scientists to the 22nd International Congress of Applied Psychology - Kyoto, Japan, July 22-27, 1990. The International Association of Applied Psychology is the largest international organization of individual psychologists with over 3000 members (one-third from the U.S.) in nine substantive divisions. This meeting is being co-sponsored by the Japanese Psychological Association and the Science Council of Japan and will include over 100 symposia on a wide variety of scientific topics.